International Travel Grant: 1991 International Seminar on Heat and Mass Transfer in Porous Media to be Held at Dubrovnik in Yogoslavia, 1991

Transfer phenomena in porous media are involved in several fields of considerable practical importance: geology, hydrology, chemical engineering, petroleum engineering, drying, etc. An international seminar in Dubrovnik, Yugoslavia is being organized by the International Centre for Heat and Mass Transfer and sponsored by UNESCO with the objective to present up-to-date research and to provide a forum for interaction by the porous media scientists from various parts of the world. The one-week seminar will feature invited lecturers and presentations by recognized experts in the field on both fundamental as well as applied topics. This travel grant will enable the PI to present an invited review based on his contributions on non-Darcy convection in porous media, research which was previously supported by the National Science Foundation.